RIDIR: Collaborative Research: Data Science Tools for Policy Analyses

This research will design and develop a data science platform that provides access to policy documents. The platform will make available for the first-time analytical tools, using natural language computer processing and data science to enable systematic research and inquiry by practitioners, project proponents, scholars, and the public to answer a host of critical questions about public policy.

Using natural language processing and data science, this research will design and develop a data science platform that provides access to tens of thousands of policy documents. The research team will produce a blueprint for the platform and validate its functionality with a community of scholars and practitioners, and establish the platform structure, ingest data, and refine analytical tools to integrate policy documents across many repositories, link text to metadata even when text comes from one source and the metadata from another, infer more detailed types of metadata that are not present in any of the existing repositories from analysis of the text, and allow researchers, contractors, and policy analysts to pose complex questions and answer them via analysis of policy documents. The team will also build a user community to catalyze scholarship and application and develop long-term mechanisms to ensure the sustainability and continued growth, management, and use of the platform and its resources.